Achieving Motivational and Cognitive Outcomes in Mathematics Using Enhanced Intelligent Tutoring Technology

Much research in education now points to the importance of both cognitive and
motivational processes in determining learning outcomes. Yet we do not yet understand
exactly how these processes interact within the individual learner over time to produce
specific learning outcomes, and how different forms of instruction and tutoring can
influence the interaction of cognition and motivation to facilitate learning. Advanced
learning technologies such as intelligent tutoring systems typically focus on cognitive
issues, and do not yet address motivational issues. Thus there is a major gap between
educational practice, as supported by learning technologies, and research in cognitive and
motivational aspects of human learning.
The goal of the proposed project is to investigate the relations of learner
engagement, cognitive processes, and scaffolding strategies in producing specific
learning outcomes in mathematics. It brings together an interdisciplinary team of
specialists in psychology, education, and information technology to pursue this work. The
project will employ educational software designed to enable us to address and measure
cognitive and motivational factors in systematic ways. It will significantly extend
previous work on intelligent tutoring systems and computer-based learning assistants to
assess in real time the attention and motivation of individual learners, infer their level of
engagement, and estimate their domain knowledge. The research results will be obtained
in realistic learning conditions: public high school classrooms in Los Angeles, with
student populations reflecting the ethnic, linguistic and economic diversity of urban
California. The software will make instructional decisions based on decision rules used
by expert human tutors who consider motivational and cognitive goals to optimize
learning outcomes. Instructional strategies will also be instantiated in the form of a
responsive animated virtual character, to learn if the presence of a human-like
pedagogical agent influences the learner.s engagement as well as learning outcomes in
mathematics. Classroom teachers will be able to customize the instruction through
innovative tools to view continually updated assessments and refine pedagogical
decisions made by the software. Rich learner data sets will be automatically collected as
students work on mathematics problems, and will provide an integrated evaluation linked
to specific learning outcomes, including word problem solving and transfer to novel,
challenging problems embedded in real-world STEM contexts. To accomplish this goal,
the researchers will build on the results of two projects developed with prior NSF support: an
empirically validated focus of attention tracking system, and an intelligent tutoring
system (ITS) designed specifically to enhance math skills in students who have been
traditionally under-represented in STEM fields of study.
The results of the project will have broad societal impact through providing
individualized, effective web-based instruction in STEM-related mathematics that will be
freely accessible to students in any high school with access to the Internet. We anticipate
that the impact will be greatest among students who currently have motivational
difficulties with mathematics, including women and underrepresented groups. The
intellectual merit of the project will be a deeper understanding of the very nature of
learning processes through the ability to model in detail and in real time the interaction of
cognition and engagement in the individual learner, and to observe changes in the
learner.s knowledge as a function of instructional history.